CSR-EHS: Resource-Efficient Monitoring, Diagnosis, and Programming Support for Reliable Networked Embedded Systems

This project focuses on an important kind of networked embedded systems
called sensor networks. Such networks have become popular platforms
for continuous sensing and analysis of physical environments, leading to
a better understanding of natural phenomena, civil infrastructures,
animal habitats, and other important scientific and engineering issues.
The sensor data can also be used to improve environmental protection,
infrastructure safety and energy efficiency, to name a few
of the potential applications.

The ad-hoc and dynamic nature of networked embedded
systems make their communication protocols complex.
This research uses the methodology of
continuous error monitoring for continued improvement
of reliability after the deployment of sensor networks.
The project builds a framework consisting of compiler-based tools and software
techniques for the detection, diagnosis and correction of
programming errors on sensor networks.
The nature of the sensor-network applications requires the hardware components
and software protocols to be small and resource-constrained.
The project therefore makes resource efficiency
one of the critical design criteria.

The success of this project should contribute substantially to
the reliability of sensor networks whose potential applications are very broad.
The project also engages a broad community
of students in various disciplines, through Honor Seminars,
special mentoring programs and undergraduate research opportunities
such as Purdue's EPICS program (Engineering Projects in Community Services).